REG: Data Acquisition for Mechanical Rock Excavation Research

The new data acquisition systems with support modules will be purchased to replace outmoded equipment. The new test machinery will be dedicated to support engineering research in : improvement of mechanical excavators for constructing high level nuclear repository at Yucca Mountain, Nevada; improvement of surface drilling for site characterization at the Yucca Mountain site; futuristic excavation technologies for hard rock mining; evaluating the mappability of rock fractures.